Oceanographic Instrumentation

The oceanographic instrumentation program supports requests to acquire instrumentation for the collection, processing and analysis of oceanographic data. This proposal from the SJS/Moss Landing Marine Laboratory requests funding for equipment that will be used to support NSF-funded research cruises aboard the R/V POINT SUR, a 135 foot vessel that is owned by NSF and operated by the University.